Analysis of Network Observability for Systems Containing Ampere Measurements

9500118 Abur The project will focus on the observability problem and a systematic method of determining network observability in the presence of current magnitude measurements will be developed. This method will facilitate the safe use of current magnitude measurements in state estimators where network observability is to be extended through current magnitude measurements. Several implementations issues will be resolved to make the method computationally efficient during online operation. The method will then be extended to the three phase power systems where several branches are mutually coupled and the equivalent circuit models are therefore non-planar. ***